Instabilities and Waves in Sheared Granular Materials

Proposal Number: CTS-0200821
Institution: Rutgers University
PI Name: T. Shinbrot and B. Glasser
Title: Instabilities and Waves in Sheared Granular Materials

ABSTRACT

The project is to investigate the shear instabilities at the interface between two streams of granular materials flowing down an inclined surface. The modes of instability produce various mixing characteristics which are of interest in many applications including pharmaceutical and food processing. The PIs will investigate this problem through experimental and computational methods based on MD and cellular automata simulations.